Undergraduate Polymer Chemistry Laboratory Course Improvement

The Chemistry Department at the institution upgraded the Polymer Chemistry Laboratory Course with new experiments and modern state-of-the-art scientific instrumentation through the acquisition of a Perkin-Elmer TGA-7 Thermogravimetric Analyzer. The Thermogravimetric Analyzer has extended current characterization and physical property methods to include studies of: 1) Static methods associated with weight change-Isobaric and Isothermal, and 2) Dynamic methods associated with weight change-Thermogravimetric and Derivative Thermogravimetric. The department also acquired a Diffuse Reflectance Infrared Fourier Transform (DRIFT) Accessory and a Horizontal Attenuated Total Reflectance (ATR) Accessory for the Nicolet 510 FT-IR which was a prior acquisition. These two accessories greatly expanded the capability of the Nicolet 510 FT-IR in infrared analyses of polymer samples. These upgradings of the department's major holdings enabled it to enhance significantly the preparation of their students for the challenging world of work in the highly technologically advanced twenty-first century. The institution contributed to the project in an amount equal to the NSF funds.